Conference: NSF Student Travel Grant for 2026 IEEE International Conference on Computer Communications (INFOCOM)

This proposal seeks to fund US-based students to attend the 2026 IEEE International Conference on Computer Communications (INFOCOM), held in Tokyo, Japan on May 18-21, 2026. 2026 IEEE INFOCOM is a premier annual forum that attracts high-quality, forward-looking research contributions and provides a vibrant forum for technical and professional exchanges. 2026 IEEE INFOCOM will expose selected students to cutting-edge developments in the field and enable interactions with world-leading researchers. Students will gain feedback on their ongoing work, broaden their academic perspectives, and build lasting professional connections.

INFOCOM 2026 will feature work aligned with NSF priorities, including Artificial Intelligence/Machine Learning for networking, cellular wireless broadband systems, including 6G and beyond, network security and privacy, and quantum networking.

This project supports students from US universities to attend the 2026 IEEE INFOCOM conference in person. Students will have the opportunity to present their work and be exposed to state-of-the-art developments in the field. They will also have the opportunity to interact with peers from institutions worldwide, meet with senior researchers, and participate in discussions that are likely to shape the future of the field.